NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1998

Abstract DBI-9803886 Willie J. Swanson This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1998. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Molecular evolution of reproductive genes: Drosophila male accessory gland proteins and their female receptors". The diversification of several genes involved in reproduction has been shown to be promoted by positive selection, however, the selective force(s) remain unknown. The research proposed will examine Drosophila male accessory gland proteins and their female receptors in order to understand the selective forces driving their divergence. The results may yield insights into the forces driving speciation.